REG: Cryomicroscopical Studies of Polymer and Surfactant Association Structures

9412361 Spontak This Research Equipment Grant will make it possible for the Departments of Materials Science and Engineering and Chemical Engineering at North Carolina State University to purchase cryomicroscopy instrumentation that is needed for examination of the morphologies of polymer and furfactant aggregate structures. This equipment will improve the capabilities of existing electron microscopes and it is critical for the ultimate success of morphological studies addressing fundamental research in areas dealing with solvated polymers and surfactants. **